Purchase of an X-ray Diffractometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at North Carolina State University in the purchase of a modern single- crystal diffraction system. This new instrumentation will enhance greatly research in a number of areas, including the following: (1) Organosulfur Complexes as Highly Conducting Materials; (2) Synthesis of Natural Products and Biologically Active Compounds Via Homochiral N-Acylpyridinium Salts; (3) Synthesis, Structure and Reactivity of Vanadium- Protein Model Systems; (4) Stereocontrolled Nucleophilic Addition Reactions to Acyclic Acetals; (5) Metal Halides at the Interface of Molecular and Solid State Chemistry; and (6) Synthesis and Characterization of Organic-Based Magnetic Materials. The X-ray diffractometer is used to make accurate and precise measurements of the full three- dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of that molecule relative to the neighboring molecules.